Computational Methods for Electronic Structure

The long-range goal of this research is to develop theoretical and computational methods to predict accurately
the properties of many-electron systems and then to apply the methods to important condensed matter
systems. The focus of this research is primarily on the development and application of quantum
Monte Carlo (QMC) methods. However, part of the research attempts to tie these approaches to other
theoretical issues such as the fundamental distinction between metals and insulators in terms of the manybodyelectron wave function.

QMC can provide very accurate results for electronic systems: the most well-known example is the homogenous electron gas where QMC has provided the benchmark upon which are based most density functional (DFT) calculations. DFT-based methods are the only current method feasible for accurate large-scale simulations of realistic systems; however, even the improved functionals have well-known defects. The past few years have seen substantial progress in coupling the simulation of ions at a finite temperature with QMC simulation of the electrons (the CEIMC method). In addition to being more accurate, in cases where other averaging must be performed, the QMC approach can be as efficient as DFT-
based approaches. Applications to extended systems of hydrogen are now in production. In the near future
there will be development of QMC methods, with emphasis upon more accurate wave functions, improved
boundary conditions, and new methods able to use much larger computational facilities efficiently.
The research will enable applications to elements with core electrons using more accurate pseudopotentials.
Methods to calculate electronic forces will enable dynamical calculations of ionic systems.

Applications of the methods will include hydrogen throughout the whole phase diagram of temperature
and pressure. Although there have been numerous previous QMC and DFT simulations, the CEIMC
method removes most of their limitations. The connection between the insulator-metallic transition, the
atomic molecular-transition and temperature and zero point effects is still lacking in current approaches.
The simulations should clarify the situation, especially under conditions where experiment is non-existent
or unreliable. A further challenge is the microscopic simulation of water from first principles, which is
absolutely fundamental to many scientific questions and which appears to be within reach of QMC simulation.
The power of this approach can be applied to other problems, for example, new methods to simulate
electrons and their spin states in real nanostructure devices, potentially more accurately and efficiently
than with existing grid-based approaches. The entire device can be simulated by coupling two
random walks-one to solve the electrostatic equations in a complicated structure and another for the Nbody
quantum equation for the electrons.

The computational complexity of the simulation of the basic equations of matter (on
classical not quantum computers) is a very important and fundamental issue. The challenge is to solve
accurately problems with many interacting particles, including strongly interacting systems and cooperative
phenomena. QMC methods have made it possible to compute the thermodynamic properties of bosonic
systems, including superfuidity. However, the fermion sign problem is a critical issue limiting
present work, and steps toward solving or minimizing the sign problem are among the outstanding challenges
in computational science. In addition, development of new computational approaches frequently
leads to new theoretical understanding as well as algorithms useful in other disciplines.

The development of these computational quantum methods will have a qualitative impact
upon the course of many fields of science including physics, materials science, chemistry and even
biology, by enabling much more accurate, and potentially faster, simulation of a broad range of systems.
The calculations will resolve questions about the properties of hydrogen at high temperatures and pressures,
the basis of models for the formation of Jovian planets; the microscopic properties of water and
solutions; and properties of nanoscale systems. The research is carried out primarily by graduate students
and postdocs who often go later to industry, thus transferring the latest computational methods. Algorithms
and software developed as a result of the research will be made available to the general research
community through the Materials Computation Center and used in undergraduate courses, graduate
courses, and summer schools at the University of Illinois and elsewhere.